Technical Support for the US Antarctic Program

The National Science Foundation (NSF) and the U.S. Army Cold Regions Research and Engineering Laboratory (CRREL) have entered into an agreement to have CRREL provide engineering consultation for Antarctic operations. The purpose of this award is to provide funding for 3 members of CRREL to make a site visit to Antarctica to assess Antarctic conditions and advise NSF management in the following three areas: * Life Expectancy Prediction for South Pole * Feasibility Study on Hard-Surface Runway for McMurdo and South Pole Stations. * Waste Management Study for Antarctic Stations. Upon completion of the site visits, CRREL will submit a new proposal to NSF for additional funding. The acting program manager recommends funding of this action.